Replication Proteins of Bovine Papillomavirus

Bovine papillomavirus (BPV) DNA can be stably maintained in infected cells as an extrachromosomal replicon. Stable copy number maintenance of the BPV genome requires coordinate regulation of viral and cellular DNA replication. Genetic analysis has identified two viral activities essential for regulated viral DNA replication, but the gene products themselves have not been identified yet. Both of the genetically defined activities map at least in part to the E1 open reading frame (ORF). The proposed project will identify and characterize the E1 gene products. Identification will be immunological detection using a set of regionally directed E1 antisera. Anti-E1 sera will be obtained by using either OmpF/E1/B-galactosidase fusion proteins expressed in E. coli. or synthetic peptides predicted from the E1 ORF sequence, as immunogen. In conjunction with the production of anti-E1 sera, a series of E1 nonsense and in-frame deletion mutations will be constructed by in vitro mutagenesis. The anti-E1 sera and the E1 mutants will be used to determine physical (cellular localization, oligomeric state, post-transnational modification, protein-protein interaction, kinetics) and biochemical (ATPase, DNA binding) properties of the E1 proteins. This is a proposal to study an unusual mechanism of maintenance of a viral infection. The DNA of the virus under study is transmitted to successive generations of cells as a small independent chromosome, of which a small number of copies is stably maintained. The virus contains genes which are essential for this stable transmission. If one of these genes is inactivated, the viral DNA can't be reproduced at all. If another of these gene's is inactivated the viral DNA replicates in an uncontrolled fashion, killing the lost cell. The products of these genes clearly allow the virus to coordinate its replication with that of the lost cell's DNA. The work proposed here is an investigation of the detailed biochemical mechanism of action of the products of these genes. This work should yield important information on how some types of viral infection persist for long periods of time, and may also results in insights into how the lost cells own chromosomes are transmitted in an orderly fashion from one generation to the next.